Honors Institutes in Computing for Precollege Teachers

This state/academia partnership will develop a three year honors institute in computing which will offer intensive summer residential program and academic year follow-up for 30 southeastern teachers, grades K-12. The goals are to: o prepare master teachers to meet certification requirements to (1) incorporate use of computers into content area instructions; and (2) become a computer technology specialist in the school system; o create a resource pool of leader teachers who will hold in-service workshops for their colleagues. The academic courses, which include experience with microcomputers especially designed for the teachers are (1) Utilities; (2) LOGO; (3) BASIC; (4) Applications to K-8 Curriculum; (5) Computer Concepts in Programming; (6) Data Structures; (7) Application to High School Curriculum. The K-8 teacher will take courses (1) through (4); high school teachers will take (1) through (3) and (7); while Advanced Placement programming teachers will take (1) through (3), (5) and (6). Courses will be offered during six weeks of the summer and bi-weekly meetings on Saturday during the academic year for the local teachers. In the two academic years, monthly on-site visits to in-state teachers will be made. There will also be a computer network and newsletter for all participants. Moreover, ten workshops per year will be held by the lead teachers, who are given released time by their schools to help colleagues meet certification requirements. Academic credit will be awarded by Western Carolina University (WCU) for those who complete the work.